A Framework for Learning High Accuracy Evaluation Metrics for NLP Applications

This project investigates a new dynamic, adaptable approach for constructing
evaluation metrics and methods for various NLP applications, with a specific
focus on Machine Translation and Summarization. The main objective is to
establish a general framework that can easily support constructing automatic
evaluation metrics for a variety of specific NLP tasks and based on a variety
of quality criteria. For a given NLP task (e.g. Machine Translation) and a
given set of established quality criteria, the framework supports learning a
set of parameters that result in an "instance" evaluation metric that has
optimal correlation with the desired quality criteria. Training a new
"instance" metric for a different task, or for a different set of quality
criteria, can be accomplished by a fast training procedure using available
training data consisting of system produced outputs, human-quality reference
outputs for the same source data, and human quality judgments for the system
outputs.

A powerful new innovation of the new framework is its ability to use the set
of all overlapping sub-sequences (also known as "skip ngrams") of the two
strings being compared. The process of skip n-gram matching is augmented with
a powerful word-to-word alignment algorithm that pre-constrains the set of
skip n-gram matches, while allowing matches between words that are
morphological variants, synonyms or otherwise related. Furthermore, our
framework uses a well-founded parameterized model for establishing the weight
or significance that should be assigned to each detected overlapping
subsequence, and can calculate these weights as an integral process during the
detection of the matching skip ngrams. The result is an extremely powerful
"metric-producing" framework. Under this framework, the project will produce
(instantiate) specific metrics for machine translation, summarization, and
other NLP tasks, that are more robust, sensitive, and have high-levels of
correlation with human judgments. The project also explores methods for
reducing the reliance of our resulting metrics on human judgments. The
resulting framework and task-specific trained metrics will be made publicly
available to the NLP research community. The impact of automatic evaluation
methods extends beyond providing a flexible performance measuring mechanism
for NLP tasks. We expect our work to enable customizing evaluation metrics
for specific tasks within a variety of cross-lingual applications, which
should significantly boost the overall performance of these applications.